Advancing Metalloradical Catalysis through New Modes of Homolytic Activation

Dr. Peter Zhang of Boston College will develop new ways to control radical chemical reactions, which are powerful but often difficult to guide. The project will use specially designed cobalt catalysts to help make chemical bonds with improved precision, efficiency, and selectivity. These advances can help scientists prepare useful molecules more safely and with fewer resources, supporting advanced manufacturing by enabling improved methods for making high-value chemicals, materials, and potential medicines. The project will also provide research training for undergraduate, graduate, and postdoctoral researchers, broaden participation in STEM, and support outreach activities for K–12 teachers and students through chemistry-based educational materials and laboratory demonstrations

This project will advance metalloradical catalysis as a general platform for selective radical reactions by developing new metalloradicophiles and new modes of homolytic activation. D₂-symmetric chiral amidoporphyrin ligands will be designed and synthesized to support Co(II) metalloradical catalysts capable of activating diazirines, (bromodifluoromethyl)trimethylsilane, dioxazolones, and bromamine-T. These systems will be investigated for stereoselective radical transformations involving C–H alkylation, difluoromethylation, aziridination, and C–H amination through key alpha-Co(III)-alkyl, alpha-Co(III)-difluoromethyl, and alpha-Co(III)-aminyl radical intermediates. Experimental and computational studies will be used to advance our fundamental understanding of synthetic chemistry by defining the underlying mechanisms, identifying the origins of reactivity and selectivity, and guiding catalyst design.